An Expert System for the Efficient Assessment of Mathematical Knowledge

ABSTRACT 9350484 Falmagne This project develops an interactive student assessment computer system to be used in grades 4 to 8. This expert system, where subsequent questions are based on previous responses, provides a report for each student delivered in everyday language and which describes the student's current strengths and weaknesses relative to the appropriate mathematics curriculum. The report makes specific recommendations and provides a printout of critical question missed with annotated solutions. The results for each student are advisory to the classroom teacher. Each student session is completed in a short amount of time. The system considers cultural and social diversity and is constructed to accept "open" responses to the questions. The system requires the identification and construction of a "knowledge space" which includes a suitable family of "knowledge states," revised and refined through peer review. Both the development and initial implementation take place in exemplary schools in Orange County California. ***